Help Wanted: Crisis in the Work Force

In conjunction with the Public Agenda Foundation, The Business-Higher Education Forum has created a unique public- information campaign, "Crisis in the Work Force: Help Wanted." The campaign's goals are to help the American people better understand the links between inadequate workforce skills and declining competitiveness--and from there to do something to address the problem in their own communities. Citizens will have a chance to be involved in recommendations to develop a scientifically and technically literate workforce. Funds will be spent on research, development of a strategy and materials. The campaigns will be conducted with active participation of local TV stations, radio stations, newspaper and Forum members. The campaigns are directed specifically to the general public and the importance of being scientifically/technically literate.